NSF Postdoctoral Fellowship in Biology FY 2010

This action funds an NSF Minority Postdoctoral Research Fellowship for FY 2010. The fellowship supports a research and training plan in a host laboratory for the Fellow who also presents a plan to broaden participation in biology. The title of the research and training plan for this fellowship to Rebecca Calisi-Rodriguez is "The role of the newly discovered neurohormone, gonadotropin inhibitory hormone (GnIH)." The host institution for this research is the University of California - Davis and the sponsoring scientist is Dr. John Wingfield.

Expression of behaviors appropriate to a particular stage within an individual's life is critical for reproductive success. Many animals experience hormonal changes when transitioning from aggressive/territorial and mating behaviors to caring for their offspring. This transition often involves a decrease in circulating androgens, like testosterone, as high concentrations of testosterone can interfere with male parental care. Androgens can also affect female behavior, though these effects are much less well-understood. Also, how the brain acts to regulate these patterns of circulating androgen concentrations is unknown. Based on preliminary results from birds (male and female European starlings, Sturnus vulgaris), the project predicts and explores if a specific novel neurohormone, gonadotropin inhibitory hormone (GnIH), mediates the inhibition of circulating androgens during parental care.

Training objectives include experimental field and laboratory techniques, methods to measure hormone concentrations, and genomics approaches to studying mating versus parental care phases. This project bridges a gap between neuroendocrinology and behavior. Because GnIH presence and function appear to be conserved throughout most vertebrates studied, including humans, the findings in birds promise to inspire new avenues into not only the study of reproductive physiology but into the neural mechanisms that may control reproductive strategy and behavior. Additionally, this project provides laboratory and field research opportunities for undergraduates and increases the participation of underrepresented groups in science.